Wind Tunnel Pressure Scanning System

Abstract
CTS-0072963
E. Anderson, Utah State University

The measurement of wall static pressure values is one of the foundational elements of experimental fluid dynamics. This data provide useful diagnostic information for a complex flow field and they provide a most important link between CFD and experimental observations. Awarding this equipment grant will make it far easier for Utah State University research/instructional faculty to acquire static pressure data in their current: i) wing tip vortex studies from a lifting body and ii) a transverse curvature channel flow, and their long term efforts on experimental work in air flows. It is expected that this equipment will benefit the thesis work and the laboratory instruction of a large number of Utah State University students.